Postdoctoral Fellowship: MSPRF: Computational Graphs and Kernel Methods for Scientific Computing

This award is made as part of the FY 2026 Mathematical Sciences Postdoctoral Research Fellowships Program. Each of the fellowships supports a research and training project at a host institution in the mathematical sciences, including applications to other disciplines such as Artificial Intelligence and Quantum Information Science, under the mentorship of a sponsoring scientist.

The title of the project for this fellowship to Alexander Hsu is “Computational Graphs and Kernel Methods for Scientific Computing”. The host institution for the fellowship is New York University and the sponsoring scientist is Benjamin Peherstorfer.